ENGINEERING RESEARCH EQUIPMENT GRANT: Chemical Vapor Deposition System

9310852 Melloch The School of Electrical Engineering at Purdue University will purchase a chemical vapor deposition (CVD) system that will be dedicated to support research in engineering. The CVD system will be used for several projects related to research and development of silicon carbide (SiC) devices and integrated circuits. Two SiC researchers in the School of Electrical Engineering at Purdue University are investigating, in which the CVD system wil play an important role, are development of SiC charge-coupled ultra-violet imager and a joint research effort with Cree Research, Inc. to develop a 1024-bit non-volatile one-transistor random-access memory chip. ***